Clean Energy from Municipal Solid Waste

9320141 Dickinson Municipal Solid Waste (MSW) is a growing national problem without a good solution. This project targets MSW as a low grade/hazardous fuel and represents a distinct improvement over current combustion/incineration methods By combining a wet RR and Wet Thermal Oxidation, EnerTech seeks to commercialize an alternative waste disposal method which is less costly, more energy efficient, and has excellent control over gaseous and solid emissions.